Chemical-Kinetic Characterization of Ignition of Fuels

CTS-990631

KALYANASUNDARAM SESHADRI U OF CAL SAN DIEGO

This is a study of the physical and chemical mechanisms of autoignition of hydrocarbon fuels in nonpremixed systems. The focus is "higher" hydrocarbons, specifically n-heptane, iso-octane, n-decane, n-dodecane and toluene. Experiments are conducted in a counterflow configuration; heated oxidizer injected from a duct flows against fuel evaporating from the surface of a liquid pool. The temperature the oxidizer stream as a function of the strain rate at ignition is measured. Concentration profiles of various stable species, the temperature profile, and the velocity profile at conditions very close to autoignition are measured. Numerical calculations using detailed and reduced chemistry are performed and critical parameters for autoignition are calculated and compared with experiments. Rate-ratio asymptotic analyses using reduced chemical mechanisms are performed. Simple analytical formulae are obtained for predicting autoignition for the fuels. Numerical and analytical computations are performed in collaboration with Professor Norbert Peters at the Institut für Technische Mechanik, RWTH Aachen, Germany.